Multi-probe cosmological and astrophysical constraints using a dynamical halo model

One of the most powerful ways to understand the composition of the universe, including the nature of dark matter and dark energy, is to observe the distribution of visible material in the regions around galaxies and clusters of galaxies. However, to exploit these observations, it is necessary to have accurate models that connect the visible to the dark. Current models are not accurate enough because they do not capture all the complexity of matter within galaxies and clusters, such as the motions of dark matter and gas through these structures and the effect of stars and black holes as they heat and displace the gas. Incorrect modeling of these complexities can lead to incorrect conclusions about the nature of the universe. The team of scientists at the University of Arizona will develop a realistic and accurate description of all material as it orbits and flows through galaxies and clusters. The team will validate this new model using existing simulations of the universe and publicly available observations of galaxies. The goal is to build a model that will enable constraints on the universe’s composition, including dark matter and dark energy, and a better understanding of galaxy formation. As part of this project, the team will train undergraduate and graduate students, and expand paid research opportunities for economically disadvantaged students through the University of Arizona's TIMESTEP mentoring program.

Technically, the project will extend the dark-matter-only dynamics-based halo model to a mass-conserving description of dark matter, galaxies, gas density, and thermal and nonthermal pressure. Oasis, the team's phase-space code, will separate orbiting and infalling components in Aemulus simulations and characterize halo abundances and correlations with cosmology and redshift. Matched dark-matter-only and hydrodynamical FLAMINGO simulations will calibrate gas thermodynamics and baryonic back-reaction across mass, redshift, and feedback variations. Validation will test three-dimensional profiles and projected correlations. Symbolic-regression emulators and a GPU-accelerated JAX pipeline will support joint analysis of DES lensing, SDSS CMASS clustering, ACT and Planck thermal and kinetic Sunyaev-Zel'dovich measurements, and BAO. The project targets percent-level predictions over nonlinear scales from k approximately 0.5 to 5 h/Mpc and joint constraints on matter density and clustering, summed neutrino mass, the dark energy equation-of-state parameter, baryon fractions, feedback evolution, and non-thermal pressure. Replacing empirical transition corrections with this dynamics-based treatment can recover information excluded by conservative scale cuts. Public code, emulators, likelihoods, and correlated mock skies will support Rubin, Simons Observatory, and Roman analyses, higher-order statistics and training.